Phase II: Magakata Woslolye Oaye (Cultivating Science into the Future)

Phase Two of the OLC TCUP program, the Magakata Woslolye Oaye (Cultivating Science
into the Future) project, builds upon the infrastructure and initiatives developed in Phase I to
expand academic and professional development opportunities for students, faculty, and
community members in areas of STEM. The vision of the Magakata Woslolye Oaye program is
to develop a model to strengthen science leadership at Tribal Colleges.
The three goals of the Magakata Woslolye Oaye program are to:
1. Train existing Oglala Lakota College STEM faculty to become Principal
Investigators and leaders and increase the number of funded original research
projects.
2. Use existing infrastructure and resources to improve academic coursework and
student learning by incorporating localized original research projects and
community based service-learning projects.
3. Adapt the existing commercial enterprise to a more sustainable socialized
enterprise model.
To reach these goals, three STEM faculty members will design a research project to
answer an environmental question relative to the Pine Ridge reservation. Each faculty will
serve as a team leader, recruit, and train four undergraduate students to work on the research
team. In addition, they will serve as the project Principal Investigator and guide the team in
writing a proposal to submit to a local review panel to receive project funding from the OLC
Phase II program.